CAREER: An Integrated Research and Education Program for the Development and Use of Computational Approaches in Biological Studies

Hilser
MCB 9875689

1. Technical

This work involves a combined research and education initiative aimed at
the development of structure-based models of biological function, which can
be used as research tools in biochemistry and cell biology labs as well as
in structural and biophysical labs. The research component involves the
development and experimental validation of an ensemble-based description of
molecular recognition. This computational model, which will provide a
quantitative link between structure and energy, will be tested and refined
by comparison to the experimentally determined thermodynamic parameters for
the binding of the Src-homology-3 (SH3) domain SEM5 with numerous variants
of its putative peptide ligand, Sos. The resultant ensemble-based view
should not only provide the structural and thermodynamic origins of the
affinity, it should allow access to the determinants of specificity as
well. As the model is intended to be used as a research tool for deriving
hypothesis, interpreting results, and directing research efforts, all
elements of this algorithm will be coded into Mathematica notebooks which
can be distributed upon request to suitably equipped labs both within UTMB
and outside of the University. The education component involves developing
a Mathematica-based curriculum in the Department of Human Biological
Chemistry and Genetics (HBC&G). In addition to the co-development of a
Mathematica -based syllabus for three courses, the education plan centers
around introductory courses for students and faculty, wherein students (and
faculty) are taught various strategies for incorporating computational
approaches in their own research.

2. Non-technical

Recent advances in computer technology, coupled to the near exponential
growth of biological databases have spawned the rapidly growing field of
bioinformatics. From within this emerging field, numerous computational
efforts have focused on integrating different types of data in tackling
complex biological problems. Indeed, such is the case in this work, where
research efforts are centered on integrating the structural (e.g. Protein
Data Bank) and thermodynamic databases to derive models for molecular
recognition, allosterism, and signal transduction. The task at hand in
this new computational era in biology is not only to develop the methods
themselves, but to provide a medium through which these methods can be
disseminated among groups, and to provide access to strategies for
incorporating these methods in a diverse array of research specialties.
The goal of this combined research and education initiative is to promote
the use of these computational approaches by developing useful methods,
implementing a convenient and accessible medium of interaction (i.e.
Mathematica ), and providing students and faculty with training in both the
methods and the medium.